Atomic Absorption Spectrophotometry for Undergraduate Science and Engineering

The aim of this project is to incorporate atomic absorption spectrophotometry (AA) into undergraduate science and engineering curricula at Tri-State University. An AA system will be used jointly by chemistry, biology, and engineering programs to improve instrumentation- based laboratory instruction and to provide students with the experimental capabilities afforded by modern instrumentation. The equipment will provide analytical capability and training in several interrelated areas: 1. Students in chemistry, chemical engineering, materials science, metallurgy, biology, and toxicology will have experience with AA, including theory, instrumental design, operation, and analytical applications. 2. Biology students will use the extended capabilities provided by AA to analyze heavy metals in tissues and in environmental samples. 3. Student projects and research in water quality in the northeastern Indiana lakes region will be expanded to include trace element analysis, thus adding considerably to the scope of information obtained.